RUI: A Portable Environment for Parallel Programming

This award is for software capitalization of a set of software tools being written to support the development of parallel programs that are portable across a wide variety of commercially available multiprocessors. The tools support development of programs that utilize both shared memory machines and distributed memory machines. A prototype has been written that provides for process creation and termination, shared memory operations such as simple locking and high- level monitor operations, message passing via send/receive, and logging for debugging. The tools use shared memory operations internally whenever possible (even for message passing), and use the Berkeley socket mechanism for communication when shared memory is not available. On machines that provide a local communication mechanism (such as some mesh machines), the local mechanism is employed internally. The tools provide several advantages over existing systems that have similar functionality.